Quantum Simulations and Ultrafast Spectroscopy Experiments to Understand the Structure and Chemical Reactivity of the Hydrated Electron

Researchers from the University of California-Los Angeles will study fundamental aspects of hydrated electrons. Hydrated electrons, excess electrons in liquid water, play a central role in radiation chemistry and electron transfer reactions. Surprisingly, however, the structure of hydrated electrons is still unknown, and the rates of hydrated-electron-based chemical reactions do not follow standard electron transfer reaction theories. The research team will undertake a combined experimental and theoretical study aimed at elucidating both the structure and reactivity of hydrated electrons. The work will take advantage of AI-based machine-learned interatomic potentials (MLIPs) and coherent spectroscopies, providing new simulation methodologies and laser-based measurements that could help understand the molecular underpinnings of quantum decoherence, the key factor limiting the development of quantum technologies. Discoveries could not only allow a better understanding of radiation damage to biological systems and materials but could also provide state-of-the-art confrontation between quantum simulations and ultrafast spectroscopic experiments. Broader impacts include educating students in the critical areas of lasers, optics, advanced spectroscopy, quantum algorithm development, and application of AI to quantum systems. The proposal will also support an outreach program bringing modern nanoscience experiments to local-area high schools.

The researchers plan to perform quantum simulations using diﬀerent levels of theory that produce hydrated electrons with diﬀerent predicted structures. The simulations will explore the way diﬀerently structured electrons interact with inert electrolytes, providing information on competitive ion pairing that can be compared directly to experiment. The simulations also will calculate thermodynamic properties of diﬀerent hydrated electron models as well as predictions of the two-dimensional electronic spectrum (2DES) and other high-order ultrafast spectroscopy experiments, providing additional direct theory/experiment contact. Incorporation of nuclear quantum eﬀects via MLIPs also will be studied. The researchers also plan a series of accompanying experiments, including measurements of the hydrated electron’s spectrum in the presence of a variety of electrolytes whose cations span the Hofmeister series. Proposed 2DES and polarized hole-burning experiments could tease out the solvent ﬂuctuations that cause quantum decoherence for this system, which has no internal nuclear degrees of freedom. Finally, the researchers will study (both experimentally and theoretically) the reaction of two hydrated electrons with each other to produce hydrogen and hydroxide, as well as the hydrated electron reduction of the nitrate ion, both of which are unusual in that the negatively charged electron rapidly reacts with another negatively charged species.